Mathematical Sciences: Research in Algebra and Number Theory

This project involves many different areas in algebra and number theory. One of the problems concerned is the long-standing one of realizing all finite groups as galois groups over specified fields. Methods involved range from Riemann surfaces to the study of central extensions of sporadic simple groups. Work will also be done on p-adic curves and on hyperbolic geometry which have important connections with number theory, both directly and through analogies involving Arakelov theory. A large portion of this project concerns representation theory of groups, algebras, quivers and Lie algebras of infinite and finite dimensions. Topics in Jordan theory that have arisen in linear algebra will also be studied. The research supported by this award spans a variety of topics in algebra and number theory. The results have implications for many different areas of mathematics and physics.